REU Site: Cooperative Intertational Science and Engineering Internships at the International Center for Materials Research and the Materials Research Lab at UC Santa Barbara

The Research Experience for Undergraduates Site at the University of California Santa Barbara (UCSB) has a unique international emphasis. This program leverages the facilities and resources of the International Center for Materials Research (ICMR) and Materials Research Laboratory (MRL) at UCSB and partner institutions in Australia, Chile, China, Germany, Netherlands, South Korea, and UK to offer international research experience to undergraduate students. The program's unique feature is the student exchange between research laboratories in the US and other countries. The student interns will engage in research projects in the areas of nano/bio-materials physics, chemistry, and engineering for 10 weeks every summer and interact with faculty mentors, post doctoral scholars, and graduate students in different research groups. This research program is designed to inspire students to continue graduate study abroad and prepare them for globally engaged science and engineering careers.